"Picosecond Optical Signal Sampling Device"

The work in the preceding grant period demonstrated the utility of the single-arm fiber interferometer as an all optical switch. It led to an all optical switch of unprecedented low switchout power with no stabilization of the interferometer. The fiber-ring reflector has similarly stable performance that needs no external stabilization. The use of the ring reflector with a 42% /68% coupler as an optical switch was first demonstrated by the research group at British Telecom. The Principle Investigator has shown that an improved version of the ring reflector can be devised if the 50% / 50% beam splitter is used. Further, a very simple version of such a reflector is a means for producing pulsed squeezed optical vacuum in a way that separates the pumping radiation from the squeezed radiation. The P.I. proposes to concentrate upon various aspects of switching and squeezing of this fiber ring interferometer, generically equivalent to the single fiber interferometer, but easier to construct and therefore preferable for experimentation. He proposes to develop further the quantum theory of solitons. Finally, he proposes to investigate the two photon absorption in silica fibers that may, or may not, affect the switching properties of optical fibers.